ITR: Information Dynamics for Networked Feedback Systems

This project is developing a new framework for investigating the dynamics of
information in complex, interconnected systems. The key technical thrusts
of the project are: (1) real-time information theory, (2) robust control of
networks, (3) packet-based control theory,and (4) computational complexity
of network systems. Each of these thrusts explores aspects of information
systems that must interact with the real-world in a manner that requires
careful control of the timing of the computation and the evolution of the
information state of the system. While diverse in application, these
thrusts represent a common core of intellectual thrusts that integrate
computer science, control, and communications.

The results of the proposed research are being evaluated on two testbeds
already at Caltech. The first is the Multi-Vehicle Wireless Testbed, which
provides a distributed environment for control of 8-10 vehicles performing
cooperative tasks in a real-time environment. The second is the WAN in Lab,
a wide area network consisting of high speed servers, programmable routers,
electronic crossconnects, and long haul fibers with associated optical
amplifiers, dispersion compensation modules and optical multiplexers.

The project is also developing elements of a curriculum that will provide
training to students in information systems that blends communications,
computation, and control. This includes integration our the research
framework into a recently created course at Caltech on the principles of
feedback and control, CDS 101, as well as development a second course, IST
201, aimed at bringing together faculty and students interested in working
on problems at the boundaries of these traditional disciplines.